Optimal Community Composition and the Provision of Local Public Goods

It is the contention of this project that the theory of local public finance is based on a misspecified "production function" for local services--one that omits the important role that community characteristics play in determining levels of public output. This misspecification has both important positive and normative implications. The positive implications concerning biased estimates of price and income elasticities have been the subject of some attention in the literature. But the normative implications have been largely ignored. In particular, the central results of the Tiebout model, namely that an optimal system of jurisdiction is characterized by communities that are homogeneous in the demand for local services, no longer holds in a world in which community composition is an important determinant of outputs of local public goods. This study develops a general theory of local finance in a setting where community composition influences local public outputs. The focus here is determining how the optimal composition of local jurisdictions depends on the interaction of individuals in the provision of local public goods. This project investigates in econometric terms the production function of public safety. It uses existing data sets to explore the form of the relationship between community composition and the levels of public safety. Finally, a series of simulation studies are made using specific utility and production functions to examine the optimal structure of local jurisdictions where community composition matters in the production of local services.